A Pilot Program to Teach Variability of Material Properties in the Freshman Material Laboratory

Probabilistic methods are gaining wide acceptance in the structural and geotechnical engineering fields and are causing comprehensive revisions in codes of practice. While these methods are being introduced in some universities at the graduate level, they are rarely integrated into the undergraduate curriculum. As a result, the overwhelming majority of civil engineers still graduate without any exposure to the concepts of randomness of material properties and loads. The ultimate goal of this project is to improve the teaching of variability of material properties to civil engineering undergraduates. First, the undergraduate civil engineering materials laboratory course will be modified. Next, the results will be disseminated. In a conventional civil engineering material laboratory course, testing is typically done on a single specimen. Illustrating the random nature of material properties requires a large number of tests. To provide this capability, the existing 400-kip Baldwin testing system will be upgraded. The upgrade will provide automatic closed-loop control of the test frame and complete data acquisition.